Engineering Faculty Internship Initiative

CTS-9311781 Purdue University Charles Pidgeon ABSTRACT Funding of this Engineering Faculty Internship award will allow the principal investigator to spend time collaborating on the computational modeling of lipids in Immobilized Artificial Membranes (IAM's) with scientists at Eli Lily. These theoretical studies complement ongoing experimental measurements of the motional properties of the immobilized lipids by 31P-NMR. IAM's have application in at least two areas of potential benefit for the country. These include the formation of anti-HIV synthetic membranes for AIDS prevention/therapy and the modification of solid substrates for reverse-phase chromatography for the separation and purification of medicines or medicinal components. s" Õ FLW K PSFONTS K ! 89DECS PRE .N T"" AUTOEXECBAT E J BURKA PRE dP #zs SAVERS j " ICONS j " LM Y CTS-9311781 Purdue University Charles Pidgeon ABSTRACT Funding of this Engineering Faculty Internship award will allow t ' ) r t 1 3 t ! ! ! F t t ( Times New Roman Symbol & Arial " h b % b % 1 Nichelle Coward Nichelle Coward